The Thermodynamics of Biochemical and Biological Processes

A major effort will be directed toward the study of the effects of amino acid replacements in proteins on the thermodynamics of protein-ligand binding and other reactions. Dr. Sturtevant also plans to study the thermodynamics of processes involving nucleic acids, including the binding of CAP protein and of lac repressor to the lac operator. Many of these systems will also be examined by comparisons with the thermal denaturation behavior, as observed by differential scanning calorimetry before and after ligand addition. Calorimeters are primarily of use in determining enthalphy changes and heat capacity changes with measurements over a range of temperatures. In certain cases, titration calorimeters afford the additional possibility of determining free energy changes. In order to obtain complete thermodynamic data, other more sensitive procedures can be utilized, such as fluorescence titrations, for determining equilibrium constants.